A Mathematical Model for Intramolecular Diffusion

The award will support the development of a new mathematical model for intrapolymer diffusion and will apply it to kinetics of protein folding. Protein folding is one of the important problems in computational structural biology. Understanding how a protein folds, and what the final state (conformation) a protein will have has tremendous implications for many areas in biology and medicine. In addition, this award will help support the retraining of a mathematician, David Anick, to work at the interface between biology and mathematics. This award is being co-funded with the Biochemistry and Molecular Structure and Function program.